Development of State-of-the-Art Geo-Environmental Engineering Research Facilities

It is proposed to develop a geoenvironmental engineering facility to train engineers in pollution control and contaminant transport in soils and other geomaterials. Analytical equipment will be purchased for the study of reaction and transport mechanisms and kinetics. Analytical equipment will be purchased to study soil structure, composition and contaminant interactions, particle size characteristics, and contaminant transport in soils.